Doctoral Dissertation Research in Sociology

This project develops and tests a model of factors producing the transition from feudalism to capitalism in fifteenth century Tuscany. The model incorporates both demographic factors (such as population pressure) and social factors (such as contracts between landlords and tenants). Results of the analyses will help refine theories of modernization, including those em- phasizing religion and bureaucratization (Weberian), those emphasizing effects of population (demographic), and those emphasizing relation to the means of production (Marxist).